Synthetic Methods and Total Synthesis in Organic Chemistry

The synthesis of complex molecules provides the driving force for the development of new synthetic strategies. This research, in the Organic and Macromolecular Chemistry Program, is centered around the development of highly regio- and stereoselective synthetic methods. A major area concerns the development of methods based on the cyclization of chains so constructed as to allow cleavage or detachment of the cyclized appendage, thus controlling regio- and stereochemistry of carbon-carbon bonds formed by addition at both ends of an unactivated double bond. Other areas of interest to this research concern the development of a general method for the formation of polypropionate- derived sequences of any stereochemistry. Finally, the possible design of molecules which might produce chiral induction in catalytic hydrogenation is considered. Dr. Stork's prior research has resulted in the publication of nineteen technical articles.